Thermodynamic and NMR Studies of E. coli Cytoplasm

With support from the Experimental Physical Chemistry and Biochemistry and Molecular Structure Programs, Professor Record will use Nuclear Magnetic Resonance to measure ion concentrations in intact, living cells subject to osmotic stress. Statistical mechanical theories will be used to interpret these data and obtain a molecular level model for the role of thermodynamic nonideality in functional cell processes. %%% Professor Record will use modern, non-invasive spectroscopic techniques to monitor concentrations of important ions in intact, living cells. He will use thermodynamic theories with these data to develop a general understanding of the role of concentrated solutions in determining how cells function. This is a beautiful example of how to apply theoretical and experimental physical chemistry to important, complicated systems.